RUI/MRI-Purchase of a 400 MHz NMR Spectrometer

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at the University of North Carolina in Charlotte will acquire a 400 MHz NMR Spectrometer. This equipment will enable researchers to carry out research on a) organometallic reactions; b) polymer materials research; c) polymer supported chiral catalysts for asymmetric synthesis and electrochemically-promoted catalytic asymmetric hydrogenation; d) fluorinated poly(mercaptoimidazolyl)borates; e) characterization of substrate analogues and reaction with glycosylasparaginase; f) studies of toxic metal ion complexes in aqueous environments; and g) the development of novel sol-gels and silicon containing species.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry, polymer chemistry and environmental chemistry.